The Young Scholars Discovery Program

*** 9553493 Marin City College of New York (CUNY) seeks to initiate enrichment experiences for six-week commuter summer young Scholars program with follow-up activities during the academic year in enfironmental science for 104 potentially successful minority and female students in grades 9-11. The students will work in teams to solve real-world environmental problems under the mentorship and guidance of university professors and practicing scientists. Activities include research projects, seminars, field investigations, and individual career and college counseling. ***